A Multi-Scale Approach for Understanding the Role of the Interphase in Polymer Matrix Composites

The focus of the research is a multi-scale
(molecular-nanometer-micrometer) investigation of the interphase and its
relationship to polymer matrix composite (PMC) performance. The first
objective of the research is to monitor the chemistry of the interphase
region in situ, and in real-time during the polymer curing cycle. The
second objective is to measure the size and the mechanical properties of the
interphases that result as a function of silane coupling agent surface
treatments. The third objective is the measurement of the micromechanical
performance of a model PMC system.
Several tasks are involved to meet the research objectives. The
first task will involve in situ reaction monitoring of a model polymer using
a novel Fourier transform infrared fiber optic sensor system which allows
direct monitoring of interphase chemistry. Experiments will be performed
using polymer/curing agent mixtures on unmodified glass fibers, and polymer
curing followed as a function of time at elevated temperature. Next, silane
coupling agent surface treatments will be performed on the glass fibers and
the organofunctional reactivity determined simultaneously with curing
agent/polymer reactivity.
The second task in the proposed research will be the nano-mechanical
property characterization after surface treatment and polymer curing.
Atomic force microscopy and nanoindentation will be used to characterize the
interphase region. These results will be correlated with the in situ
infrared data from the first task, in particular, the role of
organofunctional reactivity and polymer curing on the resultant interphase
properties.
The third task will involve measurement of the micromechanical
behavior of the model PMC through the use of the microbond test method.
Results obtained during this portion of the research will be correlated with
the first two tasks mentioned above.